Identification of N-Chloroaldimines in Chlorinated MunicipalWastewater

The objective of this project are to identify and quantify chemical reaction products when chlorine is used to disinfect wastewater treatment plant effluents. Special emphasis in this project is on reactions between nitrogenous organic compounds such as the amino acids and peptides in the effluents with chlorine. Spectral techniques are planned to be used for identification of the chlorination products, in the process of characterizing their stability and to determine how conventional methods of analysis respond to the presence of these compounds. Chlorination is relied on heavily in the United States for disinfection of effluents prior to their placement in environmental waters. Chlorine is known to react with organic compounds to form products many of which have not been fully characterized with respect to their environmental significance for downstream water users. Results of this project are expected to provide the basis for any changes that may be necessary in engineering design and use of chlorination to avoid or eliminate environmental problems associated with use of this process.